WoU-MMA: Operation of the HAWC Gamma Ray Observatory and US HAWC Data Analysis Center

The operation and maintenance of the U.S. data archive and computing center for the High
Altitude Water Cherenkov (HAWC) Gamma-Ray Observatory are supported through this award.
The archive, housed at the University of Maryland, stores and processes the enormous volume
of scientific data collected by HAWC, a unique observatory located high on a mountain in
Mexico that continuously monitors the sky for the universe’s most energetic light, known as
gamma rays. By enabling discoveries about black holes, exploding stars, and other extreme
cosmic environments, this work advances fundamental knowledge of the universe while
strengthening U.S. leadership in data-intensive science. Students and postdoctoral
researchers are trained in large-scale computing, data analysis, and advanced statistical and
machine learning techniques that are broadly applicable in science, engineering, and industry.
These activities promote the progress of science and help develop a highly skilled technical
workforce that benefits the Nation.

The continued operation of the more than 13-petabyte U.S. HAWC data archive and computing
center is supported, together with engineering, technical, and operational activities required for
the observatory. HAWC is a wide-field, high-duty-cycle observatory located at an altitude of
4,100 meters on Sierra Negra, Mexico, where extensive air showers produced by TeV gamma
rays and cosmic rays are recorded continuously. Approximately 2 terabytes of raw data are
acquired each day and are archived, processed, and distributed through the University of
Maryland computing center. More than a decade of observations has been reprocessed using
improved event reconstruction and analysis techniques, including machine learning, providing
substantially enhanced sensitivity, angular resolution, and background rejection. These
advances have enabled the detection and characterization of more than 100 very-high-energy
gamma-ray sources, including TeV halos, micro-quasars, star-forming regions, and other
astrophysical particle accelerators, while providing the long-term data set needed to
investigate the origin of the highest-energy particles in the Galaxy.